Research Initiation: Semantics and Logics of Programs

The most basic purpose of program semantics is to give a rigorous, unambiguous definition of the meaning of programs, providing a standard for translator writers and users of the language. Beyond this basic purpose, equality and other relations on program fragments can be defined, leading to logics for reasoning about programs and formal justification for program transformations. In the last twenty-five years, tremendous progress has been made. The most important step was the development of semantic domains to denotationally model programs, which have since been extended to model the constructs of modern languages such as assignments, branches and nondeterminism. Logics for reasoning about programs have also been defined for simple languages, using semantic domains as models to guarantee soundness. The difficulty is scaling up these ideas to full-fledged languages with many features. Operational semantics provides an alternative to denotational semantics here, because there is always at the bottom an interpreter, keeping ones feet on the ground, and keeping the mathematics manageable. This project takes an operational approach to semantics, with the aim of giving semantics to full-fledged programming languages and to furthermore define a rich notion of eqivalence of programs so logics can thereupon be defined. This undertaking is thus a synthesis of many different varieties of language semantics.